ORCHID: Harnessing Digital Evolution to Design High-Assurance Adaptive Systems

Proposal Number 0820220

Title: ORCHID: Harnessing Digital Evolution in Design High-Assurance Adaptive Systems

PIs: Betty Cheng, Philip McKinley, Charles Ofria, and Xiaobo Tan

A robust cyber-infrastructure must be able to monitor the environment and its own behavior, adapt to changing conditions, and protect itself from component failures. The hallmark of the Orchid project is to introduce the fundamental biological principle, evolution, into the development process for adaptive real-world software systems. The project will use and extend the Avida digital evolution software platform to address three primary tasks: (1) exploiting the automatic generation of software models and search capacity of digital evolution to enable the developer to identify viable system configurations; (2) generating novel strategies to adapt from one system behavior to another in response to changing environmental conditions; and (3) providing assurance for adaptive systems by revealing latent properties within a given configuration in order to distinguish generated configurations and remove unwanted behavior. A prototype system will be developed and used to conduct an experimental case study in the design of self-adaptive aquatic mobile sensor networks for homeland security and environmental monitoring. In addition, an instructional system, Avida-EDAS, will be developed to enable students to evolve models of adaptive software, conduct experiments to assess the impact of adverse environmental conditions, and observe the effects of different adaptation strategies on system execution.